CSR: Medium: Collaborative Research: Programming parallel in-memory data-center applications with Piccolo

There is a rising demand to scale application performance by distributing
computation across many machines in a data-center. It is difficult to write
efficient and robust parallel programs in the data-center setting because
programmers need to worry about reducing communication overhead while handling
possible machine failures.

This project investigates a new data-centric parallel programming
model, called Piccolo, that can simplify the construction of in-memory
data-center applications such as PageRank, neural network training etc.

In-memory applications can hold all their intermediate states in the aggregate
memory of many machines and benefit from sharing these intermediate states
between machines during computation. Traditionally, these applications
have been built using low-level communication-centric primitives such as MPI,
resulting in significant programming complexity. The recently popular
MapReduce and Dryad also do not fit well with these applications
because their data flow programming model lacks support for shared states.

Unlike data flow models, Piccolo explicitly supports the sharing of mutable,
distributed states via a key/value table interface. Piccolo makes sharing
efficient by optimizing for locality of access to shared tables and
automatically resolving write-write conflicts using user-defined accumulation
functions. As a result, Piccolo is easy to program for, enables applications
that do not fit into MapReduce, and achieves good scalable performance.